Improvements to the Coral Reef Research Foundation Palau Laboratory

This project will support improvements to the Coral Reef Research Foundation Laboratory in Koror, Polau, Western Caroline Islands. The CRRF Laboratory is a new facility which is rapidly developing a group of outside researchers and education programs that use the facility. Palau is an area of high marine diversity with a wide variety of marine habitats, including tropical marine lakes which are extremely rare. The CRRF Laboratory is heavily committed to assisting researchers and education programs, while maintaining an in-house program of species-level marine diversity and other marine biological research. The project will support the acquisition of laboratory equipment (microscopy, general laboratory instrumentation, computer equipment) and materials for construction of a small wet laboratory for use by education programs and outside researchers.